Preparation, Certification and Distribution of a Reference Material for Dissolved Organic Carbon

ABSTRACT

OCE-0218646

This study will continue the reference material program which for the last three years has made low dissolved organic carbon (DOC) reference material available to ocean chemists. During this three year renewal, the PI will collect deep ocean water from the Sargasso Sea, prepare the water samples and have the DOC analyzed via consensus by a group of six independent laboratories. Two of these consensus laboratories also will provide total nitrogen values for this DOC reference material. Lastly, this program plans to double the number of users of the product to 150 laboratories worldwide. The broader impact of this proposal is that of furnishing a DOC reference material to the scientific community involved in making DOC measurements which ensures that consistent, high quality DOC concentrations will be obtained by marine chemists both in the U.S. and abroad.